2002 Rock Deformation Gordon Conference, May 2002 in Barga, Italy

EAR-0125826
Andreas K. Kronenberg

The PIs propose to hold a Gordon Research Conference on Rock Deformation from May 19-24, 2002 at the Gordon Conference site in Barga, Italy. As discussed in detail in the proposal, the conference is being held to bring together an interdisciplinary group of experts to discuss major unanswered questions about the deformation and plastic flow in the Earth's crust. The issues being addressed are central to understanding tectonic processes, the initiation of earthquakes, and the origin of natural resources. Funds will be used to cover travel and accommodations to enhance participation of student and early career scientists. It is expected that a broad and interdisciplinary cross-section of researchers from academia, government labs, and the broad international community will participate in the conference. The PIs requested $25,000 in support, but the group of reviewing program directors decided that $20,000 is more appropriate for the conference as proposed.